vBNS Addition to the GCATT Broadband Internet

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. This project will provide partial support to expand the Georgia State University and the Georgia Institute of Technology's network infrastructure and implement a OC-3 ATM connection to be NSF supported the Very High Performance Backbone Network Service (vBNS). This proposal augments a previous award made under this program to Georgia Tech. Applications include: - Advanced Photon Source project - High Energy Physics - Astrophysics - Grand Challenge computational fluid dynamics - scalable libraries - meta-computing research - high speed image and video processing - coastal waterways simulation Collaborating with: - Air Force Rome Laboratories - Argonne National Laboratory - Army Waterways Experiment Station - Brookhaven National Laboratory - Cornell Theory Center - Fermilab - Illinois Institute of Technology - Lawrence Berkeley Laboratory - Lawrence Livermore National Laboratory - Maui High Performance Computing Center - Northwestern University - Old Dominion University - Purdue University - Stanford Linear Accelerator Center - Texas Institute for Computational and Applied Mathematics - University of Colorado - University of Florida - University of Washington The award provides partial support of the project for two years.